MRI: Acquisition of a High Mass Resolution/High Sensitivity Isotope Ratio Mass Spectrometer For Earth Sciences

The use of stable isotope tracers in Earth Science research has provided particularly valuable information about processes that operate in nature, both today and in the ancient past. Studies using these tracers have seen a wide array of applications develop with many that bridge Earth science with disciplines such as chemistry, biology, and physics as well as applied science in industry and medicine. The applications have followed questions raised by stable isotope researchers as new ideas and technology have been developed where more precise and more finely focused measurements open up new types of studies, sometimes new fields. A recent example of such a development relates to the study isotopic of species with multiple substitutions of rare isotopes. These isotopic molecules or isotopologues can be used to interrogate questions well beyond those that can be studied with existing stable isotope techniques, and these new approaches promise to provide novel information relevant to study of geological, atmospheric, and biologic processes, and as in the past, to have implications within as well as beyond the traditional limits of Earth science.

This grant supports acquisition of a recently developed state-of-the-art High Mass Resolution/High Sensitivity Isotope Ratio Mass Spectrometer (HR/HS-IRMS) designed for measurements of isotopologues by a cross disciplinary team of University of Maryland scientists. The requested instrument will support three, first-order scientific objectives: (1) identification of the sources, fluxes, and composition of mid-Atlantic States methane for implementing local controls and improved definition of the global budget and increasing atmospheric burden; (2) use of the doubly substituted isotopologues of molecular oxygen in combination with more traditional isotopic and concentration data for constraint of photosynthetic production and respiration consumption of oxygen at the time of ice breakup in the arctic oceans; and (3) development of a new isotopic system for sulfur (36S) that will provide new ways to study the ecology of the S metabolisms and the role of reoxidative S-cycling, including its connections to the global oceanic cycles of carbon and oxygen. The first objective will provide key information needed to understand the biogenic vs. fossil sources of methane on a regional and global scale; the second objective will contribute to understanding of the response of seasonally ice free marine systems in the Arctic, and the third objective will contribute to understanding the processes of S-cycling and their linkages to other element cycles in modern and ancient systems. The instrumentation will be the first of its kind on the east coast of the United States, supporting new mid-Atlantic research that will provide policy relevant science for the Maryland Climate Change Plan and the Regional Greenhouse Gas Initiative (RGGI involves nine states), as well as wider implications for methane cycling on the global scale. The instrumentation will support a wide range of research activities across the university system with a long-term goal of 30% external Earth Science users who will draw on its capabilities to extend its scientific and societally-relevant work. The instrumentation will promote teaching and learning with a central role in laboratory research that include mentoring of students from local high schools, undergraduate students, and visitors from other institutions. At the University of Maryland in particular, these activities will broaden the participation of under-represented groups, (women, African American, Hispanic) in Earth Science research. From the standpoint of activities that engage the public, the instrumentation will be incorporated into existing programs, including the Smithsonian Institution National Air and Space Museum Youth Program, the University of Maryland Baltimore County (UMBC) Choice Program, the UMD Freshman Innovation and Research Experience (FIRE) Program, as well as the Maryland Day open house when ~75,000 visitors come to campus.